CISE Research Infrastructure: A Laboratory for Intelligent Multi-Sense Interfaces (A Planning Grant)

EIA-9972881
Randal C. Nelson
Christopher M. Brown
Sandhya Dwarkadas
Kiriakos N. Kutulakos
Michael L. Scott
University of Rochester

CISE Research Infrastructure: A Laboratory for Intelligent Multi-Sense Interfaces

University of Rochester researchers will conduct research and pilot studies in ubiquitous visual computing. The theme of their work is using high performance networking to connect devices that provide and use images in compute intensive settings. Researchers will establish a protocol that can ship images and video transparently between workstations and the computational cluster. Another project will implement a dataflow image computation model.